Wavelet Image Recognition

Zero crossings (and local energies) of a set of wavelet transforms encode discontinuities and structure of an image at multiple scales. Wavelet theory permits analysis of these representations, including such directional and temporal filters as are found in biological vision systems. This grant is for further study of wavelet transforms for image compression, texture discrimination, and stereo matching.